Reactive Polymers: Applications in Organic Synthesis

With the support of the Organic Synthesis Program and the Office of Multidisciplinary Activities of the Mathematical and Physical Sciences Directorate, Professors Mark J. Kurth and Neil E. Schore, of the Department of Chemistry at the University of California, Davis, are developing broadly applicable methodologies for the preparation and evaluation of reactive polymer systems of use in organic synthesis. Polymers with functionalized cross-links provide more homogeneous sets of environments for substrate, catalyst, and reagent linkage, while polymers based on cyclopolymerized functional monomer units afford less flexible polymer backbones and potentially greater stereocontrol of linkage sites. New traceless linker strategies are designed for use in both organic and organometallic cycloaddition reactions of utility in combinatorial studies, and an iterative strategy affords access to novel polyisoxazole-based polypyrimidine and polypurine systems. Following the successful development of solid-phase peptide synthesis, a technique which allows the rapid and efficient preparation of polypeptides, the possibility of carrying out other sorts of organic transformations on solid `supports` has attracted a great deal of attention. Professors Mark J. Kurth and Neil E. Schore, of the Department of Chemistry at the University of California, Davis, with the support of the Organic Synthesis Program and the Office of Multidisciplinary Activities of the Mathematical and Physical Sciences Directorate, synthesize new polymeric solid supports designed to facilitate specific chemical reactions of importance in the synthesis of significant organic molecules. They investigate new strategies for the attachment of molecules to these solid supports, for the conversion of these molecules to new species via various types of reactions, and for the release from the solid support of the products of these reactions. These solid-phase organic synthetic strategies are of direct relevance to the field of combinatorial synthesis, wherein `libraries` of related molecules of potential activity may be rapidly prepared and screened for activity.